Novel 2-Azabicyclo[2.1.1]hexanes. The Dihydropyridine Route

ith the support of the Organic and Macromolecular Chemistry Program, Professor Grant R. Krow, of the Department of Chemistry at Temple University, is studying a novel rearrangement route of 1,2-dihydropyridines to 2-azabicyclo[2.1.1]hexanes. The scope and generality of this method will be explored with regard to the enantioselectivity, regioselectivity, and stereoselectivity. Target azabicyclic compounds will include methanoprolines as potential collagen mimics, aryl and aryloxyamines as potential antinociceptive nicotinic receptor agonists, and diamine subunits for the preparation of potential fluroroquinolone antibacterial agents.

Professor Grant R. Krow in the Department of Chemistry at Temple University is studying a new synthetic procedure for constructing nitrogen-containing bicyclic organic compounds. This compounds will be used as building blocks for potential new antibacterial agents and may prove useful in preparing pharmaceutical agents for diseases such as Alzheimer's and Parkinson's.